Model Studies of Exotic Superconductivity in Heavy Fermion Materials

DMR-9708600 Cox This is the last year of three year continuing grant, DMR- 9420920, which was transferred from Ohio State University to the University of California at Davis. %%% This is the last year of three year continuing grant, DMR- 9420920, which was transferred from Ohio State University to the University of California, Davis. ***